Research Experiences for Undergraduates Site at Mechanical and Aerospace Engineering Department, Syracuse University

The Mechanical and Aerospace Engineering Department at Syracuse University has served as a REU site for the past three years and will continue this year. The research stipends will be awarded to motivated and academically superior engineering undergraduates who have completed their junior year studies. The project has both the summer and academic year components. Seven faculty members in the Mechanical and Aerospace Engineering Department have expressed active interest in supervising the research efforts of the students. The areas in which these faculty members are currently engaged in research span experimental and computational fluid mechanics, gasdynamics, aerodynamics, heat transfer, aeroacoustics, noise control and composite materials. A REU participant may select a research problem in any one of these research areas of interest to him or her. Research participant's choice of a research problem and faculty supervisor's field of specialization will be matched.